E-CORE: South Carolina Collaborative Academic Pathways in STEM

This EPSCoR Collaborations for Optimizing Research Ecosystems (E-CORE) proposal is for a collaborative project, led by the South Carolina Research Authority (SCRA), among 11 institutions across South Carolina (SC), including Anderson University, Coastal Carolina University, Coker College, College of Charleston, Furman University, Lander University, Presbyterian College, South Carolina State University, University of South Carolina Upstate, Voorhees College, and Winthrop University. The proposed activities are aligned with the State’s needs to build sustainable STEM pathways to sustain workforce development and to create long-term growth in research capacity across the jurisdiction. The project has potential to impact statewide faculty development and institutional collaborations for sustainable workforce and research competitiveness. This award will advance the Foundation’s statutory mission to enhance research infrastructure and STEM workforce development in an EPSCoR jurisdiction.

E-CORE: South Carolina Collaborative Academic Pathways in STEM (SC-CAPS), is led
by SCRA, a public non-profit and home to the SC EPSCoR Office, and engages 11 academic institutions across South Carolina (SC). This E-CORE project is focused on the following three Cores, coordinated by the Administrative Core: Core 1: Expanding STEM-Focused Experiential Learning; Core 2: Building Pathways in STEM; and Core 3: Supporting Faculty Development & Institutional Growth. The project aims to increase students’ retention and on-time graduation rate by providing research and internship opportunities for high school students, college transfer, and undergraduate students across 11 campuses in South Carolina. The project also plans to support faculty development, institutional growth, statewide collaborations, and research capacity building by providing seed funding for equipment, research development, and research nexus - best practices workshops. This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Collaborations for Optimizing Research Ecosystems (E-CORE). E-CORE supports jurisdictions in strengthening their jurisdiction-wide research ecosystems through fostering interconnected networks, building research infrastructure, and growing research capacity and competitiveness aligned with jurisdictional priorities.